Imaging Mantle Structure of Australasia, Eastern Asia and the Western Pacific

9628351 Jordan This research involves the determination of the structure of the Earth's mantle in Australasia, eastern Asia, and the western Pacific through a series of seismological experiments that begin with a three-dimensional, high resolution tomographic study. Motivation for the study comes from new stations in the study area and new inversion techniques for a more diverse collection of seismic phases. Frequency dependent travel times of body waves, guided waves, and surface waves can now be derived from a self- consistent analysis of three-component seismograms recorded at short epicentral distances, which makes them ideally suited for regional tomography. Combination of these data with the band- centered travel times of zeroth-order and first-order ScS reverberation phases, allows inversion for mantle discontinuity topography and lateral variations in polarization anisotropy. The resulting model has a direct bearing on the mode of mantle convection which is the driving force for plate tectonics and earthquakes. This research is a component of the National Earthquake Hazard Reduction Program. ***